Implementing an Environmental Geophysics Field Course

This project integrates geophysics into the undergraduate hydrogeology and environmental programs. A 5-week environmental geophysics field course is being implemented and provides students with hands-on experience and applications of geophysical techniques necessary in resolving environmental, hydrogeological, and engineering problems. The aim is to provide the students with the essential principles and experience in the integrated use of several geophysical techniques and the ability to select the appropriate method(s) in addressing different environmental problems. Students work on specific projects in order to fulfill the following objectives: acquire, process, and interpret geophysical data, as well as provide written reports for their projects. This project specifically provides funding for state-of-the-art geophysical instrumentation. Several sites within Southwest Michigan have been selected as teaching sites for this new course. Ongoing hydrologic investigations at these sites have centered on aquifer characterization, contamination, and aquifer vulnerability problems. Using geophysical techniques, students characterize an aquifer and define contaminant plumes, thereby gaining valuable experience in the use of geophysics in addressing environmental problems.